Collaborative Research: Classification of the Finite Simple Groups

ABSTRACT -- PROPOSAL 0401132 -- PI's: R.~Lyons and R.~Solomon

Lyons and Solomon will continue the Gorenstein-Lyons-Solomon project to
create and publish a second-generation proof of the Classification of the
Finite Simple Groups. The remainder of the project is subdivided into
three major subprojects. The first subproject is to provide a complete
set of recognition theorems for the alternating groups of degree at least
nine and for the finite groups of Lie type of untwisted Lie rank at least
three. These recognition theorems will mesh with the local structure
obtained in other volumes, generally a bouquet of known quasisimple groups
of Lie or alternating type, arising as components in the centralizers of
commuting elements of prime order. This project involves collaboration
with finite geometers, including Shpectorov, Gramlich and Hoffman. The
second project is to provide an analysis of two special classes of finite
simple groups of even type -- those of Klinger-Mason type and those of
intermediate type. The former are characterized as groups of both even
type and p-type for some odd prime p, and include approximately half of
the sporadic simple groups. The latter class roughly approximates the
groups with e(G) = 3 and includes most of the groups of Lie type of
BN-rank 3 defined over finite fields of characteristic 2. This project is
a collaboration with Inna Korchagina and Kay Magaard. The third project is
to establish the non-existence of finite simple groups of even type having
a p-uniqueness subgroup for some odd prime p. This project is a
collaboration with Gernot Stroth.

Finite groups arise as the symmetry groups of discrete objects in many
branches of mathematics, as well as in chemistry and other sciences.
Objects having a high degree of symmetry generally have symmetry groups
which are either almost simple groups or affine groups having almost
simple point groups. As such, finite simple groups, and questions about
their subgroups and representations by permutations or matrices, arise
naturally and pervasively in coding theory, crystallography, graph theory
and number theory. The ability of scientists and mathematicians to
understand and use the symmetry groups which arise in their research
depends critically on recognition theorems, almost all of which rely
eventually on the classification theorem of the finite simple groups.
Many of these recognition theorems have been used in recent years to
design powerful computer software for the efficient recognition of groups
from fragmentary information, usually given by a generating set of
permutations or matrices. Again this relies fundamentally on the validity
of the classification theorem of the finite simple groups. This project,
in conjunction with other recently completed projects and a small number
of well-accepted treatises and papers, will provide a coherent, reliable
and readable source for the proof of this fundamental theorem. In
addition, in the process, it is documenting a wealth of recognition
theorems and detailed subgroup information about the finite simple groups.